A Proposal to Continue 'A National Data Program for the Social Sciences'

The investigators seek funding to continue a "National Data Program for the Social Sciences, " namely the General Social Survey (GSS). The GSS has been monitoring social change in the United States, examining sub-groups in society, and studying social processes since 1972. Over this period 23 cross-sectional surveys of the US adult household population have been completed, involving face-to-face interviews with approximately 41,000 respondents. Surveys seek to document fundamental social change in areas such as uses of technology, social and cultural capital, neighborhoods and communities, social networks and racial and gender attitudes. The GSS has six components, a replicated core set of questions, modules developed on topical subjects, cross-national modules, experiments and reinterview and follow-up studies. This grant will allow the GSS to continue these basic features and plans to conduct surveys in years 2002 and 2004.